Diversifying STEM Teacher Education via Evidence-based Instruction and Authentic Research Experiences

This Noyce Track 1 aims to serve the national need to recruit, prepare, and retain highly qualified STEM teachers committed to teaching. Additionally, this project aims to support 15 Noyce Scholars by providing substantial scholarships, early field experiences, summer internships, and professional development grounded in evidence-based instruction and authentic research experiences. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers equipped with extensive expertise in active learning pedagogies, clinical approaches, and the integration of authentic research practices into classroom instruction.

This project at Southern University and A&M College includes partnerships with Southern University Laboratory School and East Baton Rouge Parish School System. Project goals include recruiting, preparing, and supporting 15 new STEM teachers over five years in disciplines such as mathematics, biology, chemistry, and physics. The project will primarily support undergraduate STEM majors who are committed to teaching in high-need school districts. Through recruitment, early field experiences, and robust professional development, the project aims to develop a pipeline of highly qualified secondary STEM educators equipped with skills in evidence-based instruction and authentic research practices. This project will be iteratively evaluated. Evaluation of the project will consist of a comprehensive plan to assess program effectiveness, focusing on four areas: (1) Recruitment of Participants: Effectiveness of strategies to attract diverse and qualified candidates to the program. (2) Preparation of Participants: Quality and relevance of teacher preparation activities, including coursework, mentorship, and field experiences. (3) Retention of Participants: Long-term impact on program participants, including their retention in high-need schools and professional growth as educators. (4) Impact on Participants: Effect of prepared teachers on student outcomes in high-need schools. The evaluation will utilize a mixed-methods approach, incorporating both quantitative and qualitative approaches, to provide actionable insights for continuous improvement. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.